Wild World

97-05292 Fred Kaufman ABSTRACT: Educational Broadcasting Corporation (WNET, NY) is developing a multi-media environmental education project for youth aged 8 to 12. Wild World focuses on American children's everyday urban and suburban surroundings - city streets, parks, backyards, vacant lots, the woods, and similar environments easily and often accessible to the audience. The project will educate young people about environmental and natural science topics and issues in an entertaining, engaging way, and will encourage them to become more aware of their immediate environment. Important goals are to showcase people who are passionate about their work with, and in, natural surroundings, and to show that our world is intriguing and well worth investigating. The science content will reflect the recommendations of the National Science Education Standards and Benchmarks for Science Literacy. Major components of the project include: * A thirteen part series of half-hour television programs entitled Wild TV -- this exciting and occasionally irreverent series is designed to attract viewers indifferent to traditional nature documentary program. The format is also intended to appeal to young people with little pre-disposition to science or nature. * Wild Comix -- a comic book-styled educational print piece for young people that includes activities that kids can try at home, puzzles, and other thought-provoking exercises. * Wild Web -- a World Wide Web site featuring an interactive version of the comic book, activities and puzzles, a chat room, a bulletin board, and links to environmental groups. * A Home and Extracurricular Settings: Activity Guide - intended for parents and informal educators, the guide will include: enriching nature appreciation for the entire family; improving the learning relationship between children and their parents; and activities/directions for parents that are not prohibitive with regard to area, income, and adults' educational background. * Classroom materia ls - a 12-page guide designed as an introductory resource for classroom teachers who want to incorporate environmental science activities into their teaching.